U.S.-Japan Seminar: Molecular and Cellular Aspects of Vascular Smooth Muscle Function; February, 1994; Honolulu, HI

This award supports the participation of 11 U.S. scientists in a U.S.-Japan Seminar on Molecular and Cellular Aspects of Vascular Smooth Muscle Function, to be held in Hawaii, Feb. 1-4, 1994. The co-organizers are Professor R. Clinton Webb of the University of Michigan and Professor Yoshiaki Nonomura of the University of Tokyo. This seminar builds upon the success of two similar bilateral meetings held in 1977 and 1989. In addition to the U.S. and Japanese participants, scientists will be invited from Germany, Belgium, Sweden, Denmark, and Russia. This seminar will bring together specialists in the four processes in the contraction and relaxation of vascular smooth muscle: 1) membrane excitation, 2) excitation-contraction coupling, 3) energy metabolism, and 4) chemomechanical transduction. Although these are the same processes that are involved in the function of other muscle, there are important individualities among the various muscle types and there is a high degree of specialization among the investigators. Since the earlier two meetings on the subject, important new insight has been developed in basic research in vascular biology. Participants in this seminar will exchange information and plan directions for future research.